ORGANIZATIONAL: Miami Museum of Science & Planetarium PAESMEM

HRD-0429831

The Miami Museum of Science provides an outstanding exemplar of how a traditional community-based agency can cast its outreach activities to reach at-risk youth and non-traditional populations with the effort resulting in meaningful success. The Museum has developed, sustained and delivered a distinctive portfolio of mentoring programs to youth from challenging economic and social circumstances that represent mostly African-American and Chicano/Latino families for more than ten years. Many of the science programs target K-12 learners and supplement traditional school science curriculum using hands-on projects, field trips, and internships.

The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.